NeTS-NoSS: Cooperative Communication for Wireless Sensor Networks

The goal of the project is to investigate link and routing protocols for
multi-hop wireless sensor networks that use a type of cooperative
transmission called opportunistic large arrays (OLAs). An OLA is a large
group of simple, inexpensive relays or forwarding nodes that behave
without coordination between each other, but they naturally fire together
in response to energy received from a single source or another OLA. Each
node has just one antenna, however because the nodes are separated in
space, they collectively provide diversity protection from multipath
fading and they can reap the spectrum efficiency of a
multiple-input-multiple-output (MIMO) system. It has been shown that under
sufficient conditions during broadcast, OLAs form concentric rings that
cover the whole network. Even when flooding the whole network, OLA
networks have been shown theoretically to have significant advantages over
conventional multi-hop networks in terms of reduced transmit energy, lower
node complexity, better connectivity, and shorter end-to-end delay.
Reduced energy consumption means sensor batteries last longer.

The project will further reduce the energy consumption of OLA networks by
limiting the flood to be more like a river, many nodes wide, exploiting
the ring structure to guide a message up to the sink. Developed protocols
will exploit the trade-off between diversity and spatial multiplexing
within OLAs to achieve connectivity while maximizing throughput. OLA link
layer protocols will enable the river to flow around obstacles such as
blockages or clusters of destroyed nodes, and resolve the situation when
rivers collide.